Molecular Evolution of Pituitary Hormones

IBN-9507171 Dores, Robert M. Previous attempts at evaluating phylogeny of vertebrates by comparing sequences of low molecular weight polypeptide hormone families have yielded, in general, unsatisfactory phylogentic trees. This is due to the small size and high degree of conservation, such that there are not adequate differences in peptide structure to construct appropriate trees. Moreover, construction of trees based on these data have lead to errors in establishing the relationship of one species to another. However, Dr. Robert Dores believes that phylogenetically relevant information may be obtained by investigating the structure of the precursor molecules for the pituitary hormones, due to their larger size as opposed to the hormones themselves. In the present studies, Dr. Dores proposes to isolate and sequence the gene encoding proopiomelanocortin from the pituitary of a number of different species. By comparing the sequences of these genes using maximum parsimony procedures, development of an accurate phylogenetic map relating these species with other vertebrates will be possible. This new information about proopiomelanocortin, the precursor molecule for corticotropin, melanocortin and beta-endorphin, a potent endogenous analgesic molecule, will provide more direct evidence for the relationship between several species. In addition, by sequencing the gene encoding proopiomelanocortin, the precursor for the important mammalian stress molecule, corticotropin, new information about stress responses in humans may be obtained.